Track 1, GK-12: E-MRGE: Ecohydrogeology in the Middle Rio Grande Environment

This proposal describes a Track 1 project developed by the University of New Mexico. The main goal of the project is to link graduate Fellows on ecohydrology with middle school students and teachers in the Socorro and Belen districts. The PIs plan to link this project with the existing Sevilleta Long-Term Ecological Research program (LTER), and an IGERT program. Field trips for Fellows and teachers to the Sevilleta and the development of inquiry-based activities for students are some of the main characteristics of this project.